Collaborative Research: PPoSS: Planning: A Cross-Layer Observable Approach to Extreme Scale Machine Learning and Analytics

The ability to analyze and learn from large volumes of data is becoming important in many walks of human endeavor, including medicine, science, and engineering. Analysis workflows for high-resolution images (e.g. medical imaging, sky surveys), scientific simulations, as well as those for graph analytics and machine learning are typically time consuming because of the extreme scales of data involved. While the hardware elements of the modern data center are undergoing a rapid transformation to embrace the storage, processing, and analysis of needs of such applications - understanding of how the different layers of the systems stack interact with one another and contribute to end-to-end application performance is challenging. This planning project envisions the ACROPOLIS framework to address these challenges. ACROPOLIS will enable a comprehensive research agenda on systems software that will facilitate rapid and flexible construction of analytics workflows and their scalable execution. By facilitating the rapid prototyping of application drivers ACROPOLIS can also enable important scientific discoveries to potentially improve human health and better understand the world around us. The research enabled by ACROPOLIS will also educate many students, including those from under-represented groups, who will become part of a highly-trained workforce capable of addressing our nation's needs long into the future. With respect to broader impacts, ACROPOLIS will provide a unique research and training infrastructure that will catalyze research in multiple disciplines as well as facilitate convergent research across disciplines. Well-established initiatives at The Ohio State University, such as the Louis Stokes Alliances for Minority Participation (LSAMP) as well as new programs in Data Analytics, will facilitate the recruitment of graduate and undergraduate students for involvement in this research agenda. This project is aligned with two of NSF’s 10 Big Ideas: Harnessing the Data Revolution and Growing Convergence Research, as well as the American AI Initiative.

The project addresses five key research pillars: 1) Flexible abstractions for parallel computation and data representation, 2) Modeling data movement complexity at extreme scales, 3) Pattern-driven scalable communication and I/O systems, 4) Near-memory architectures for machine learning and analytics, and 5) Cross-layer observability and introspection. Specifically, the focus is on the design of an end-to-end framework inculcating a high-performance, next-generation, heterogeneous, reconfigurable hardware and software stack to facilitate real-time interaction, analytics, and machine learning for a range of scientific disciplines including Computational Pathology and Computational Fluid Dynamics and Emergency Response.